Baffin Island Photographic Identification and Oral History Project: A Temporal Study of Inuit Environmental Knowledge

Abstract

Henshaw
OPP-9906701

A project to conduct Inuit oral history research uses historical photographs from the south coast of Baffin Island to explore Inuit knowledge and perceptions of the environment, climate change, and culture change in the twentieth century. The photographs come from the collections of Robert Flaherty, Donald MacMillan, and Peter Pitseolak and cover the periods 1913-14, 1921-22, and 1940-60, respectively. The research will be undertaken in and around the present-day Nunavut communities of Cape Dorset and Lake Harbor. Environmental knowledge documented through the interviews will be linked with broader, regional scale environmental data available from a variety of instrumental, archival, and highly resolved proxy records (e.g., ice cores, tree rings, sediments) to provide new and unique insights into local aspects of the human dimensions of climate change. The combined data set, augmented by summary maps generated with geographic information systems (GIS), will not only help to integrate data representing different spatial scales, but will also join indigenous environmental knowledge and Western scientific studies.